Mathematical Sciences: Ergodic Theory and Applications in Combinatorial Number Theory

Boshernitzan will continue his work in ergodic theory and combinatorial number theory. He will study the homogenous ergodicity property that dynamical systems may satisfy, pseudo- Anosof interval exchange maps, alpha-rotations with alpha having bounded partial quotients, and symbolic flows coming from substitutions. The study will lead to quantitative estimates on how well the orbits of the above mentioned dynamical systems are uniformly distributed. This project involves research in ergodic theory. Ergodic theory in general concerns understanding the average behavior of systems whose dynamics is too complicated or chaotic to be followed in microscopic detail. Under the heading "dynamics can be placed the modern theory of how groups of abstract transformations act on smooth spaces. In this way ergodic theory makes contact with geometry in its quest to classify flows on homogeneous spaces.